A Detailed Analysis of the Structure and State of Stress of the Vrancea Subduction Zone

9418482 Fan This research is to study the Vrancea seismic zone, located in the eastern part of the Carpathian arc, which is well known for intermediate-depth seismicity associated with subduction, or continental collision. New data accumulated in the last decade will allow the investigation of the source-time history of more than 25 medium-sized earthquakes and the development of a detailed velocity structure for the region above the seismic zone. The work will be done in collaboration with Dr. Oncescu of the Romanian Center for Earth Physics and Seismology; the Romanians operate a digital regional network equipped with short-period seismometers. The origin and tectonic history of this seismic zone is the subject of considerable controversy, and it is uncertain whether it is due to continent-continent collision, or the remanents of oceanic subduction. This study will provide new information on the geometry and the stress regime within the downgoing slab. Numerous strong earthquakes have occurred in the Vrancea zone and have caused fatalities and extensive damaging. These studies should provide a better understanding of seismic hazard in this type of tectonic environment. This research is a component of the National Earthquake Hazard Reduction Program. *** ??